Conference: QURiSE: Quantum Undergraduate Research in Science and Engineering

Quantum information science and engineering is a priority research area in alignment with the National Quantum Initiative. Moreover, workforce development in quantum engineering and quantum information science is needed to prepare the next generation of high technology research leaders.

This conference award will provide partial support for a workshop for undergraduate researchers in quantum science and engineering. It will provide professional development opportunities through presentations and networking with students and professors from several universities and from several disciplines such as physics and engineering that underpin quantum information science research.